Project Funds for IPA Assignment

As part of an IPA assignment to the American Chemical Society, Nancy Conlon will develop statistical analyses of various data sets containing information about U.S. scientific and technical personnel. This award provides funds for the acquisition of the tabulations and data tapes required.